Margins: Community Sedimentary Model Science Plan for Sedimentology and Stratigraphy

-----Original Message-----
From: Poore, Richard Z
Sent: Tuesday, July 24, 2001 10:56 AM
To: Weller, Margaret
Subject: Syvitski abstract

Science Summary: This proposal requests support for a workshop to outline a strategy and protocol for constructing a community sediment model (CSM) that will incorporate a series of modules that can be used to simulate evolution of landscapes and sedimentary basins on a variety of timescales . Outcome of the workshop will be a document that outlines a strategy and framework for developing and linking the components of the CSM.